Rayleigh and Sodium Lidar Studies of the Troposphere, Stratosphere, and Mesosphere at the Amundsen-Scott South Pole Station

Abstract 9616664 Papen This project will continue the operation of a sodium resonance lidar at the South Pole in order to study the vertical structure and dynamics of the atmosphere from the lower stratosphere to the mesopause. During the third year of the project, an iron resonance lidar will be added which will extend the measurements of the dynamics and temperature structure to 100 km altitude. Additionally, an airglow imaging camera will be used to study the horizontal structure. When used in conjunction with the normal balloon-borne radio sondes which are regularly flown from South Pole, the final complement of instruments will provide extensive data on the temperature structure from the surface to 100 km altitude; the nature of the polar stratospheric clouds, which are important to ozone chemistry; the variability and frequency of occurrence of metallic layers in the mesosphere, which play a role in communications as well as chemistry; atmospheric gravity waves; and many other phenomena, some of which are unique to the South Pole. ***